Use of Polishing Process Model as an Example for Manufacturing System Design

9714604 Chandrasekar Technology implementation in the discrete manufacturing sector is more difficult than in the continuous process (e.g. chemical, flat glass) and semiconductor industries, where the availability of scaling laws, unit process models, and integrated system models has allowed for the rapid implementation of new technology. In this study, a new approach is developed for modeling a manufacturing system by starting with detailed physical models of the unit processes, such as machining and polishing, and integrating them into a unified system model. This development illustrates an avenue for the discrete manufacturing industry to achieve many of the capabilities of the continuous process and semiconductor industries. Models are first developed for an example unit process, viz. abrasive polishing, which is widely used to produce smooth surfaces of precision mechanical and electronic components. This is accomplished through a combined experimental and theoretical study of the mechanics of polishing. The models have the capability of predicting various outputs of the polishing process such as surface finish, residual stresses and depth of plastically deformed layers on polished surfaces; and rate of material removal. The problem of integrating a collection of unit process models into a unified model for the entire manufacturing system is next studied. This requires, for example, that unit operation models be developed to a stage where they can provide information about process variances and the sources of these variances. The results of this research enable the development of a unique seminar course and short monograph that will help advanced undergraduate and graduate students to compare and contrast process and system modeling issues in the continuous process, discrete manufacturing and semiconductor industries. ***